The Market for Engineers

This research will formulate and estimate a dynamic model of the engineering labor market since 1950, based on a model of stock-flow adjustment of engineers to changing market conditions. It will use annual Current Population Survey data special tabulations (adjusted for age and other characteristics) to investigate how expected career earnings prospects in engineering compared with other occupations determine entry decisions. It will also investigate the effects of changing demand conditions on entry, using such variables as research and development spending and overall level of economic activity and national defense expenditures. It will also examine the effect of changing cohort sizes for the period 1950 to 1990.//